Data Acquisition Workstations for the Undergraduate Linear Circuit Laboratory.

This project will equip an advanced electronic laboratory with six experiment stations. Each station will contain an IBM PC/XT, a Keithley Data Acquisition System and a Digital Multimeter with analog outputs. The stations will allow very rapid data collection, leading to an increase in the number of experiments that the students will be able to perform. Rapid data collection will also allow the students to examine the circuit characteristics as the parameters are changed resulting in a fuller understanding of the design of circuits.